Research Experiences for Undergraduates at Colgate University

Dr. Quang Shen and other members of the Chemistry Department of Colgate University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range the traditional areas of chemistry-inorganic, organic, physical and biochemistry. A unique feature of this program is that each project will have chemical kinetics as a theme to provide a common thread for communication among students initially, and a common base of knowledge for further discourse among students and faculty.